RAPID: Environmental Reservoirs of SARS-CoV-2

In the midst of the CoVID-19 pandemic, important questions remain unanswered: Is the virus that causes the disease, lurking on that keypad at your local bank? What about that package from Amazon? While there is much speculation, we really do not know the answers to these very basic questions about how and where the virus lives outside of humans. The goal of this research is to determine if surfaces commonly touched by humans, but not routinely disinfected, are important for the spread of CoVID-19. Such surfaces will be tested for the presence of the virus. Results will be used to develop new mathematical models to determine if commonly touched surfaces are important for spreading CoVID-19. This research is important not only for society's response to CoVID-19 but also to plan for future pandemics caused by other viruses. The project will also help train the next generation of scientists who study the ecology and spread of disease.

This project will collect thousands of surface swab samples from hundreds of sites around San Diego, USA. The samples will be screened for SARS-CoV-19 using the Reverse Transcription Polymerase Chain Reactions (RT-PCR). These data will be used to calibrate, fit and validate dynamical models that describe SARS-CoV-2 transmission from the environmental reservoirs. From these models, important characters of the SARS-CoV-2 epidemic, including risk of human infections from environmental reservoirs and contribution of environmental reservoirs to the basic reproduction number (R0) of the virus, will be estimated. The swab samples will also be characterized by metatranscriptomics for other viruses and microbes living on the same surfaces. This will be valuable for understanding the community ecology of these micro-environments and serve as a baseline for future studies. Together these intellectual products will have practical impact on controlling CoVID-19 by helping determine whether more effort should be put on disinfecting these surfaces or controlling the virus in other reservoirs.

This RAPID award is made by the Population and Community Ecology Program in the Division of Environmental Biology, using funds from the Coronavirus Aid, Relief, and Economic Security (CARES) Act.